State/Industry University Cooperative Research Center for Capsule Pipeline Research

The principle objective of the State Industry/University Cooperative Research Center for Capsule Pipelines at the University of Missouri-Columbia is to generate knowledge and know how for the design and operation of these pipelines. Studies have shown that products can be transported economically to distant places by capsules (large cylindrical containers or log forms) moving through pipelines. The technology, called "capsule pipelines" or "freight pipelines," has many potential advantages including lower freight costs, less energy consumption, less pollution and environmental problems, greater safety, and better reliability. Presently, interest in capsule pipelines is centered around the "coal log pipeline (CLP)," i.e., the "capsules" are compressed coal cylinders (coal logs) in direct contact with the water flowing in the pipe. The center research during the first four years will focus on CLP, and then gradually shift to other types of capsule pipelines. The Core Program of the Center includes basic and applied research in hydrodynamics of capsule flow, theory of capsule pumps, automatic control of capsule pipeline systems, manufacturing of coal logs, water quality and corrosion of coal log pipelines, and legal/institutional issues relating to eminent domain and water rights for coal pipelines. The Core Program will also involve technology transfer activities such as preparing a detailed design and operations manual and constructing a small-scale demonstration system of coal log pipeline for training industry personnel, holding a technology-transfer workshop, etc. The Non-Core Program will include the following: methods to fabricate coal logs, determination of the best ways to prevent jamming and to minimize abrasion of capsules and coal logs in pipelines, optimum design of coal log pipeline systems, and the economics of coal log pipelines as compared to other competing transportation modes including train, truck, barge, and slurry pipelines. The State of Missouri, industry and NSF will provide matching funds totalling $525,000 in the first year.